CRI: Generic Experimental Networking Infrastructure for Research on Emerging Networks and Services

The University of South Carolina will establish a generic networking research infrastructure comprised on routers, laptop computers, hand-held devices and sensors. The infrastructure will be used in research on resilient routing and forwarding, multimedia computation and communication, and ubiquitous network security. The infrastructure will be used in research, research training and education. The infrastructure will also be used in outreach and REU programs including the South Carolina Alliance for Minority Participation.